Survey of Tilt-Up-Wall Structural Systems Affected by the Whittier Narrows Earthquake of October 1, 1987

There is a lack of data on the performance of tilt-up wall systems during earthquakes. This type of construction is becoming increasingly popular for commercial and industrial buildings. This 12-week study provides for research of tilt-up-wall buildings affected by the Whittier Narrows earthquake of October 1, 1987 and the following large aftershock of October 4, 1987. The research provides a broad data base for follow- on efforts to evaluate the performance of tilt-up wall systems during earthquakes. The project focuses on conducting a field survey of tilt- up-wall buildings shaken by the earthquake and acquiring available data on records and surveys done by others immediately after the earthquake.